Combined Research-Curriculum Development Program: Lasers in Manufacturing

Abstract: EEC-9527447, University of Michigan, PI-Dr. Elijah Kannatey-Asibu: This award provides funding to The University of Michigan for support of a Combined Research Curriculum Development Program entitled, "Flexible Power System Control." The CRCD program emphasizes the need to incorporate exciting research advances in important technology areas into the upper level undergraduate and graduate engineering curricula and stimulates faculty researchers to place renewed, equal value on quality education and curriculum development. This three year program under the direction of Dr. Elijah Kannatey Asibu will create two new courses on the subject of lasers in manufacturing that will combine the study of basic principles of the laser and newly developed theory in laser materials processing with experimental laboratory projects. The project will provide advanced undergraduate and first year graduate students greater insight into the physical phenomena of beam material interaction. It will also provide an effective forum for transfer of the new technology to industry.